Surface Wave Polarization and Global Upper Mantle Structure

This research is to improve surface-wave dispersion maps using both dispersion and polarization data measured from long-period (greater than 100 seconds) 3-component recordings from the various global networks. Surface wave dispersion maps provide important constraints on global models of shear-wave velocity structure. The current generation of surface-wave dispersion maps show significant differences from author to author and the additional constraint of polarization data, interpretated within a ray-theoretical framework, provides sensitivity to higher-order structure. In order to validate the procedures and assess the importance of large-scale anisotropy, the work will include application of the measurement and interpretation techniques to coupled-mode synthetic seismograms.